Interactive Learning Modules for Manufacturing Engineering Education and Training

9416305 Sanderson ABSTRACT Interactive Learning Module for Manufacturing Engineering Working in partnership with Apple Computer, AT&T, IBM, and Northern Telecom Corporations, this Rensselaer Polytechnic Institute Project has dual objectives: (1) Using multimedia and distance learning technologies to present case studies, expert commentaries, and manufacturing simulations, focusing on advanced electronics and electromechanical product sectors; and (2) Using the modular nature of these materials to widely disseminate them for use by industry and other institutions so as to impact different geographical, technological, corporate, and demographic sectors. Based on excellent facilities and proven background in modular development enhanced by emerging video technologies and well-chosen industrial partners, this project can potentially lead to future means of manufacturing education. ***